Turbulent Transport by Waves

DMS 9971640

A. M. BALK

University of Utah

Turbulent Transport by Waves

ABSTRACT

The basic problem considered in this proposal is the Transport of
a Passive Scalar in a prescribed velocity field which is
a superposition of waves. The spreading of an oil spill on the ocean
surface can serve as an example. The objective is
to derive an equation for the averaged evolution of the passive
scalar in the ensemble of random waves. The analysis of this
basic problem is used for the investigation of Wave Turbulence
(dynamics of a system of random waves weakly interacting with each
other).
The proposal contains also the description of two related projects
about systems with Strong Nonlinearity: Rayleigh-Taylor Instability
and Materials with Non-Monotone Stress-Strain Relation.

In practical terms the problem of Turbulent Transport by
Waves can be put like this. Suppose oil is spilled in the ocean. Ocean
waves have a profound effect on the evolution of this spill.
The first goal of the proposal is to derive an equation for the
drift and spreading of the spill. The same mathematical problem
arises in other problems of the ENVIRONMENT: the
spreading of pollutants in the atmosphere or the motion of
phytoplankton in the ocean. We also apply the problem of
Turbulent Transport by Waves for the investigation of Turbulence
of Waves, such as ocean waves, or sound waves, or planetary
waves, which govern the weather. All these problems are important
for the understanding of the ENVIRONMENT and GLOBAL CHANGE.
Two related projects about systems with Strong Nonlinearity
are included in the proposal as well: (1) the so called
Rayleigh-Taylor instability, which is crucial for the NUCLEAR FUSION
(with inertial confinement); (2) the dynamics of solids with
non-monotone stress-strain relation (stretching of such a solid
can decrease the resisting force). The later could lead to
developing of MATERIALS capable of withstanding strong repeated
perturbations. Power plants in seismic regions or armor can serve
as examples.